Electron Transport in AlAs/GaAs Quasi Two-Dimensional Systems

9971021
Shayegan

This project involves an experimental investigation of the materials science and physics of quantum-confined semiconductor heterostructures. The emphasis of the program is on both the fabrication, via molecular beam epitaxy technique, and the electronic transport measurements at low temperatures and high magnetic fields where electron-electron interaction and correlation effects dominate. The systems which are being studied, namely, novel, high-quality electron and hole systems in selectively-doped GaAs/AlGaAs heterojunction structures, are among the cleanest (lowest disorder) carrier systems available. Such structures provide a crucial and important test-bed for new many-body physics. The results can also have an impact on the realization of new devices whose fabrication and/or operation are based on semiconductor structures of similar type.
%%%
This is an advanced materials research program in low-dimensional semiconductor heterostructures where electron-electron interaction dominates the physical properties and often leads to new, unexpected phenomena. The program is at the cutting-edge of materials science and physics, and provides a unique training and research opportunity to the graduate students and postdoctoral associates.
***